Mathematical Sciences: Fruitful Research Topics in Matrix Theory

This project is concerned with research in matrix theory. The principal investigator will investigate spectral problems and matrix completion problems. She will also study matrix completion problems and k-cyclic matrices. A matrix is a rectangular array of objects. Given two matrices there is a notion of how to add them and how to multiply them. This rather general setting turns out to be useful in describing situations which arise in many areas of science.